Support of International Astronomical Union Colloquim #142, College Park, MD, January 11-15, 1993

Support of International Astronomical Union Colloquium College Park, MD, January 11-15, 1993. This International Astronomical Union Colloquium is on the topic of particle acceleration phenomena in astrophysical plasmas. The meeting will be made up of invited papers, covering observational and theoretical work on the topic, as well as related contributed oral and poster papers.